SHF: Small: Reusing Debugging Knowledge

Developers spend most of their time debugging software. This effort
results in perfective changes to their applications, but is otherwise
lost. No central repository exists that stores all bug descriptions
and fixes. The reason for this state of affairs is the belief that
debugging is an idiosyncratic, context-specific task that does not
generalize. In contrast, this project hypothesizes that applications
decompose into smaller, similar problems and that limitations of the
human mind imply that we are likely to make similar errors when
confronted by similar problems. In practice, most developers
agree. When fixing a bug, a developer often begins by searching for
similar bugs that have been reported and resolved in the past, because
a fix for a similar bug can help him understand his bug, or even
directly fix his bug. In short, the problem is that the knowledge
gained during debugging is wasted---either not stored or not
searchable.

This project seeks to revolutionize debugging by capturing and reusing
debugging knowledge. Developers can leverage the knowledge of the
community to speed up debugging. To this end, it proposes to create a
universal bug repository capable of storing all bug information,
indexed on bug traces. To speed debugging, this repository will
support efficiently finding similar bugs and their fixes. It will be
the basis of automatic debugging tools that match closed bugs to an
open bug, then test the applicability of their fixes to that open
bug. Programmers will consult the proposed bug repository as a matter
of course during debugging. Monitors that compare the current
execution against traces in the repository can also prevent bugs and
improve software reliability. This project promises to significantly
speed up debugging and reduce software production cost. The proposed
educational innovations and outreach efforts can also help train more
capable IT professionals for the workforce.